Brown's Advanced Laboratory for Instructional Computing

Computing has experienced two major paradigm shifts in the past 25 years: from batch computing to time-shared computing and from time-shared computing to personal computer and workstation computing. A third paradigm shift, probably as significant as the first two--the exploitation of three-dimensional visualization, visual programming, and multimedia--will be next.In this project, Brown University plans to continue to exert leadership in teaching and research by being at the forefront of efforts to make this latest paradigm accessible and useful to all. The project involves equipping the electronic classroom with the latest generation of workstations with three-dimensional graphics and multimedia capabilities, developing the necessary educational software to exploit the capabilities of this new generation, and exporting both the software and the educational materials developed with it to other institutions.The work is both a continuation and a significant extension of the past and current efforts at Brown. The current research efforts in graphics, programming environments, and program visualization will be used as a foundation for the new tools, migrating research software into the instructional environment. The curriculum will be upgraded and, where necessary, revised to introduce advanced concepts in the introductory courses and to reinforce these concepts in the latter courses.